Statistical Methods for Models with Comstraints and Incomplete Data

NSF: DMS 9704983 Statistical Methods for Models with Constraints and Incomplete Data Y.Vardi and C-H Zhang Rutgers University ABSTRACT Statistical methods and inference tools for problems with incomplete - data and constrained -parameters will be developed. There are four main research topics: The first topic covers regression and multisample data under selection bias that depends on the response variable. A number of semiparametric models (parametric weight functions, nonparametric base distribution) are studied and maximum likelihood procedures with related inference tools are developed. Applications to HIV clinical trial are proposed. The second topic focuses on estimation in multinomial models subject to upper and lower bound constraints on the cell probabilities. This method is incorporated into an EM algorithm for image reconstruction in discrete tomography . The third topic extends current semiparametric regression models to truncation-censoring cases and heteroscedastic regression models with censored data. The fourth topic centers on inference for right-censored random (growth) curves, where the censoring mechanism depends on the progression of the curve. This is informative, nonignorable, censoring and it poses methodological challenges for the problems of comparing two groups of curves (treatment and control). Methodolgy based on U-type statistics is developed, and a semiparametric accelerated growth regression model is introduced to model relationship between the curves and their corresponding covariates. The research centers on statistical methods for problems in which data collection is impaired by sampling bias, missing observations, and models with partial information on the parameters. The developed methods contributes directly to certain scientific areas considered of strategic national importance. The research on estimating cell-probabilities in constrained multinomial models is incorporated in an algo rithm for image reconstruction of binary images in electron transmission tomography; an important high-tech technology, still in research stages, for estimating the atomic structure of a crystal layer by taking projection measurements. This is important in material studies and in manufacturing. The research on semiparametric selection-bias models relates to applications in biotechnology, as it is developed in preparation for planned HIV vaccine trials. The goal here, is to have a methodology in place for analyzing HIV-1 sequence data arising from forthcoming vaccine trials.